SBIR Phase I: Information Retrieval

This Small Business Innovation Research (SBIR) Phase I project will address central problems of information retrieval(IR) and the human/computer interface. QuantumFind wishes to develop a dynamic, graphically presented information space in which users can immediately visualize multiple aspects of large information sets. QuantumFind will build a pioneering new IR platform that contains the following:
(1) A collaborative filtering systems based on analysis of users' search paths through data, which will allow users to benefit from other's experience; (2) Integrated Ostensive Modeling systems which will match the results of collaborative path analysis and other relevancy measures to user's current information needs; and
(3) A dynamic user interface which integrates these measures, allowing users to immediately see and explore multiple 'relevance paths'.

QuantumFind's product will dramatically reduce the time spent in locating, retrieving and browsing documents, and significantly increase users' recall of document contents. The need for better information search tools is widely recognized, and the potential market covers almost every industry.